Biogenic Sulfur in the Siple Dome Ice Core

This award is for support for four years of funding for a program of biogenic sulfur measurements on the Siple Dome ice core. Biogenic sulfur is a major aerosol-forming constituent of the atmosphere and has potentially important links to the earth's radiation budget. Previous work on the Vostok ice core has demonstrated a remarkable climate-related variability in biogenic sulfur, suggesting that the sulfur cycle may act to stabilize climate (keep the glacial atmosphere cool and the interglacial atmosphere warm) in the Southern Hemisphere. In this study, methane-sulfonate (MSA) will be measured on the Siple Dome ice core as part of the West Antarctic ice sheet program (WAIS). Siple Dome is located in a region which is strongly impacted by the incursion of marine air onto the Antarctic plateau. Because of its proximity to the coast and meteorological setting, it is expected that variability in high-latitude marine biogenic sulfur emissions should dominate the MSA record at this site. In addition to the deep ice core record, samples from shallow cores will also be analyzed to provide information about regional variability and decadal-to-centennial scale variability in the deposition of sulfur-containing aerosols from high latitude source regions over the past 200 years.